Multi-Component Modelling of Late Pleistocene Climate

Although there is evidence of periodic climatic changes in the geological record extending back to the Cambrian era (more than 500 million year ago), the 100,000 year periodicities found in deep sea sediments are most prominent in the late Pliestocene (recent several million years). It has been postulated that this periodicity in the geological record reflects a nonlinear response of the climate system to changing external forcing due to incoming solar radiation variations induced by changing geometry of the earth's orbit. This project focuses on numerical modeling of this phenomenon. With a multi-component model consisting of an ice-bedrock model coupled to an atmosphere-ocean energy balance model, several numerical experiments will be carrried out to delineate the relative importance of interaction between continental ice sheet and underlying bedrock (isostacy) in accounting for the observed spectral dominance at 100,000 years. Specific tasks include (1) test in the coupled model the importance of rapid glacier termination (which occurs initially in the ice sheet-bedrock portion of the model), (2) model the rapid growth stage of the last major glaciation, and (3) with coupled model predicted ice volume changes and ocean temperatures, simulate an oxygen isotope record to compare with the deep sea fossil record. This research is important because it will enhance our understanding of the physical basis for the dominant 100,000 year periodicity during the late Pleistocene epoch.